Disordered Inorganic Nanostructures

This collaborative group award supporting the research of T.J. Pinnavaia, M.G. Kanatzidis, S.J.L. Billinge, S.D. Mahanti and M.F. Thorpe at Michigan State University is supported by the Chemistry Division. The focus of the research is the design, synthesis, characterization and computational simulation of disordered inorganic nanostructures. Two types will be explored, oxides, typically silica and alumina, and non-oxidic mesoporous structures, typically chalcogenides. Hydrothermally stable oxide mesostructures will be made by self-assembly using neutral surfactants as templates. Framework structures and heirarchal particle structures, i.e. vesicles, thin films, and porous clay heterostructures, will be made and characterized as a function of the surfactant and processing conditions. Characterization will be by small angle x-ray (SAXS) and neutron scattering (SANS), transmission electron microscopy and atomic pair distribution function (PDF) analysis of powder diffraction patterns. Pillared lamellar chalcogenides will be prepared by templating metal sulfides around thiol-ligated gold particles. Transition metal chalcogenide frameworks prepared by surfactant templating will combine semiconducting phenomena with accessibility by guest molecules. Modeling of porous networks and simulations of the surfactant self-assembly process and diffusion and access in the mesostructures of interest will complement experimental studies.

Disordered inorganic oxide mesostructures with highly accessible framework pores and having high hydrothermal stability will likely find applications in liquid-phase catalysis and separations not achievable with conventional zeolites.
Metal chalcogenide mesostructures may be active hydrodesulfurization catalysts, electronic materials and sensor materials.